Hawai'i Kumu-Ola: Source of Knowledge Program

The University of Hawaii Manoa, located on the island of Oahu, will implement the project entitled: "Hawai'i Kumu-Ola: Source of Knowledge Program". This five-year TCUP project will adapt a successful Native American recruitment and retention model used at Oregon State University to increase the number of Native Hawaiians and underrepresented students in STEM fields of study.

The project will endeavor to increase the number of Native Hawaiian and underrepresented students by: integrating traditional ecological knowledge in core courses; assisting teachers and students in the establishment of math learning communities; providing students with exchange, mentoring and internship opportunities; involving students in "hands-on" field-based learning; assisting students in their transition from high school to college; and involving students in the production and delivery of television and internet media used in program outreach.